Unintended Social Inferences in Encoding Social Information

9319611 ULEMAN ABSTRACT People often make "snap judgements" of others, and these may be hard to ignore. Recent research shows that people sometimes make these judgements without even realizing it, and despite their best intentions to avoid them. These "spontaneous trait inferences" (STIs) can affect subsequent judgements, without the judge's knowledge. Reaction time methods, and word-stem completion measures, allow us to detect and study these unconscious STIs. STIs can be abstract or concrete (e.g., "good" vs. "charitable"). What determines their level of abstraction? The researcher will investigate their abstractness, and the possibility that prior evaluations of the person affect STI's generality. For example, if someone acts generously, that might be spontaneously interpreted as "good" if you already feel positively about the person, but merely as "charitable" (a less general influence) if you feel negatively. Previous demonstrations of STIs have all been based on the target person's behaviors. But we also form impressions from how others act toward the target person. A second set of experiments will investigate whether we do this spontaneously. Just as traits can be spontaneously inferred, perhaps goals and/or behaviors are also spontaneously inferred. The third set of experiments will explore this possibility. In addition, all these experiments seek personality differences between those who readily make STIs and those who do not. This basic research on impression formation has potential applications to personnel assessments and diagnoses of psychopathology, as well as to understanding stereotyping, daily social interaction patterns, and long-term social relationships.